Research Experiences for Undergraduates at Mountain Lake Biological Station

The Research Experiences for Undergraduates (REU) Site at Mountain Lake
Biological Station (MLBS, University of Virginia) offers ten students a
summer opportunity to conduct independent, self-motivated,
interdisciplinary, and original biological research in experimental,
field-based ecology, evolution, and behavior. Under the close supervision
and guidance of a research mentor, and the program coordinator, students
design, execute, analyze, interpret, and present a self-contained research
project within the ten weeks of the program. Many student projects are
published in leading peer-reviewed journals. Students participate in weekly
seminars on the design and conduct of research, scientific ethics, writing
and presentation techniques, and other matters of scientific and academic
life. Students prepare written and oral proposals and final reports.
Participants also take advantage of the rich, varied, and stimulating
intellectual and social life at Mountain Lake. MLBS hosts two formal
research seminars per week, which include both in-house and invited
speakers. All Station residents eat meals together in the common dining
hall, and most daily activity revolves around the central lab building where
all research programs are housed. And since field sites are often within
walking distance, interactions among all Station users occur constantly,
resulting in a remarkably supportive and collaborative environment.
Researchers from large universities and small colleges return to the Station
year after year - some for 10, 20, even 30 years. Sixty to eighty principal
investigators, course faculty, post-docs, graduate and undergraduate
students, and high school students are in residence at the Station
throughout the summer. MLBS has hosted an NSF REU-Sites program
continuously since 1993 and has graduated well over 100 students - over half
have gone on to pursue graduate training in biology. The program is very
successful at attracting women and students from small colleges where
research may not be a focus. Minority students and those in
underrepresented groups are especially encouraged to apply.